Large-Scale Constrained Nonlinear Optimization

This research deals with the development and implementation of algorithms for numerical solution of large-scale constrained nonlinear optimization problems. Three major topics are being considered: (1) techniques for improving the efficiency of sequential linearly constrained methods for nonlinearly constrained optimization, (2) active-set methods for sparse linearly constrained problems, and (3) application of sequential quadratic programming methods to sparse nonlinearly constrained problems. Drs. Gill, Murray, Saunders, and Wright are well known for their work in computational optimization procedures. Stanford University provides an excellent environment for this project. An award is highly recommended. This award is to be jointly supported with the Numeric and Symbolic Computation Program in the Division of Computer and Computation Research.